CEDAR Storm Study Workshop; Westford, Massachusetts; March 24-26, 1993

A special workshop will be held during March 24-26, 1993 at Millstone Hill in Westford, Massachusetts for participants in the CEDAR Storm Study. The purpose of the workshop is to enable participants in the study to get together for in-depth discussions and planning joint papers for presentation and eventual journal publication. A special session has been planned at the Spring 1993 AGU meeting where papers emanating from this workshop will be presented.